Theoretical Study of Quantitative Variation

Many human diseases and also many biologically interesting and economically important traits in higher organisms and farm animals and plants are controlled by multiple genes. Genetic dissection and mapping of these genes on chromosomes have always been an important aim of quantitative genetics as it could lead to a better understanding of the structure of polygenic systems and also to identification of major chromosome regions for further genetic study, genetic engineering or selection. To map quantitative trait loci (QTLs) accurately, a complete linkage map is necessary and is now made possible with the rapid advance of recombinant DNA technology. There have been many statistical methods proposed for mapping QTLs, notably the interval mapping method proposed by Lander and Botstein, but none of them has taken a full use of complete linkage map information on mapping QTLs. This project proposes to study an alternative mapping strategy which combines the interval mapping with an interval test. This method will be able to test for a QTL on a marker interval independent of the effects of QTLs at other regions of chromosomes and thus will be asymptotically unbiased. Also by using a general linear model, the whole map information will be used simultaneously in making statistical inferences about locations and effects of QTLs and the efficiency of the test will be increased. This project also proposes to study a more general polygenic mutation model for the study of evolution of quantitative traits. With this model the expected genetic variances within and between finite populations and the response of populations to selection with reference to molecular evolution will be studied.//